Conference: Research at High Pressure GRC and GRS: Exploring Matter Beyond Equilibrium

This award from the Condensed Matter Physics program supports the attendance of early career scientists and students at the 2024 Gordon Research Conference (GRC) and Gordon Research Seminar on Research at High Pressure, with an emphasis on Exploring Matter Beyond Equilibrium. The biennial GRC brings together world experts and young scientists in a broad range of fields. Sessions on matter out of equilibrium, hydrides, the deep Earth, the machine learning revolution in materials computation, new experimental probes, and astrophysics will be held. A novel feature will be a session highlighting the technological applications of high-pressure research – for example the barocaloric materials for sustainable cooling. All the events are designed to provide an opportunity for friendly, yet high-level scientific discussions among participants crossing all levels of experience and influence.